Dissemination of Instructional Materials in Mathematics for the Pre-College Level: A Report to the Profession

This proposal requests funds to pull together existing data and information on the impact of from 7 to 9 selected past and current projects funded through DMDRI in the area of mathematics. This data must be collected through questionnaires completed and interviews with project p.I.'s, publishers, school personnel and others. The project P.I.'s are college faculty, publishing corporation representatives, researchers, directors of informal science instructional facilities and officers of professional organizations all having concern for the improvement of mathematics education at the pre-college level. The results of these impact studies, to be presented in a written report, will serve DMDRI in setting direction for future funding and in designing more complete studies in the future